Deep Structure, Support and Dynamics of Mountain Belts

Project studies the deep structure of mountain belts, using seismic earthquake techniques. Investigates evidence for concentrated downwelling of mantle material beneath the active mountain ranges. Measures mean S wave time delays from earthquakes in Asia to stations at teleseismic distances to map low velocity zone under Tibet, and also in Tien Shan. Project utilizes synthetic seismograms of P and SH phases to constrain fault solutions. Project quantifies the mantle velocity structure in the asian region.